Studies of clathrin-mediated endocytosis in a millisecond time resolution

Chemical synapses within the brain are specialized cellular junctions that are vastly
intergraded to allow for rapid, highly-specific communication between neurons. Fusion of
neurotransmitter-containing vesicles with the plasma membrane, subsequent release and
activation of postsynaptic receptors executes a phase called exocytosis. To prevent the limited
number of synaptic vesicles from rapid depletion, a secondary system of webbed pathways
replenishes the vesicle pool through several modes known as endocytosis. Although the exocytic
pathway, with its signaling cascade and key proteins are confidently defined, the true nature of
vesicle re-formation is less clear. The proposed study will investigate the molecular mechanisms
of endocytosis using biophysical and electrochemical methods with milli-second time resolution.
We expect that this work will illustrate the functions of several important endocytic proteins in
endocytosis.

The results from this work will likely lead to important insights into synaptic vesicle
recycling, which is critical for higher functions of our brain, such as learning and memory. These
results will shed new light on a signaling cascade that defines the hallmark of inter-cellular
communication and aid in identifying aspects of cellular health, thus revealing a deeper
understanding of what functional mechanism(s) are involved in the dominant and most
fundamental endocytic portal. The investigators will also be dedicated to the training of
undergraduate and graduate students in scientific research, through discussion in classes and
research in laboratories.